RUI: High Frequency Analog Telecommunications Circuits

This RUI award supports development of standard cell library of high frequency analog CMOS telecommunication circuits in 2.0, 1.2 and 0.8 micron technologies. Design and evaluation data on the library cells will be included with the library. The entire library and evaluation data will be made available to interested investigators over Internet. It is expected that the project will provide support to wireless research research community, as well as students, in the area or analog circuitry.